RAPID: Capturing Perishable Source-to-Impact Debris Flow Data from Hurricane Helene in the Southern Appalachians

Hurricane Helene triggered numerous debris flows across mountainous terrain in western North Carolina and the southern Appalachians. Debris flows are fast-moving landslides made of water, soil, rock, and debris, and they can damage roads, homes, utilities, and other infrastructure. The storm left behind a time-sensitive physical record of where debris flows began, how far they traveled, and how they affected homes and other structures. These physical records are being changed by erosion, vegetation regrowth, cleanup, repair, demolition, weathering, and changing property access. This Rapid Response Research (RAPID) award supports urgent field work to preserve perishable evidence before it is lost. The project will create a high-resolution source-to-impact debris-flow dataset from selected Hurricane Helene sites, documenting debris flow initiation areas, runout distances, and impacts to affected structures. The resulting data products, expected to be shared through a National Science Foundation supported repository such as DesignSafe, will provide reusable information for future studies of debris flow initiation, mobility, infrastructure impacts, and engineering risk reduction in mountain regions affected by rainfall-triggered debris flows. The work serves the national interest by preserving data from a damaging natural hazard event that affected roads, homes, utilities, and mountain towns, by improving the field information available for future natural hazards engineering research and post-disaster reconnaissance, and by supporting graduate training in rapid field documentation and three-dimensional data processing.

The project will collect, process, and archive field data focused on two connected components: debris flow initiation-scarp and source-area geometry, and debris flow impacts to affected structures. Field methods will include terrestrial laser scanning, Global Navigation Satellite System survey control, field measurements, georeferenced photographs, drone imagery where feasible, point cloud registration, georeferencing, metadata development, and data archiving. Source zone documentation will include scarp depth, sidewall geometry, source-area dimensions, local morphology, exposed materials, and volume related metrics. Structure-impact documentation will include exterior and selected interior point clouds where safe and permitted, debris or flow height indicators, mud lines or high-water marks, impact direction, deposit thickness near structures, scour or foundation exposure, visible damage state, building type and material, georeferenced imagery, and related metadata. Runout-path documentation will be collected where feasible to connect source and impact observations. The archived dataset will provide future researchers with processed, georeferenced information needed for studies of debris flow initiation-area and volume scaling, debris flow mobility, infrastructure impacts, and geotechnical, structural, and numerical model validation.